Phase Transition Studies of Confined Helium

Further work is proposed to study the effect of disorder and reduced dimensionality on phase transitions in 4He. Liquid helium confined by porous media and as a thin film on a graphite surface will be studied at 10mK, 300mK, 2K and 4K using heat- capacity, third-sound, vapor-pressure-isotherm and light- scattering techniques.